Equipment for Studies on Engineering Materials from Lignin

Instrumentation and equipment will be used to establish a laboratory to study chemical structure, molecular weight, and weight distribution of lignin. This information is important to allow the utilization of isolated lignin in the development of engineered lignin-based structural materials. Specific equipment for determination of molecular weight and molecular weight distribution includes a solvent delivery system for a liquid chromatography system, an injector, a variable UV detector, a differential refractometer, integration software, and an IBM personal computer for data analysis. A Fourier transform infrared spectrometer will be used for the quantitative structure analysis of isolated lignins and lignin derivatives, for lignins in solid materials and several other applications.